CISE Research Instrumentation: Network Computing Testbed for Interactive Visualization, Multimedia, and Metacomputing

EIA-9986052
Panda K. Dhabaleswar
Ohio State University

CISE Research Instrumentation: Network Computing Testbed for Interactive Visualization, Multimedia, and Metacomputing

The Department of Computer and Information Science at the Ohio State University will purchase a network computing testbed (consisting of a set of Quad SMP Pentium systems, Gigabit Ethernet and Myrinet interconnects for intra-cluster communication, ATM interconnect for intra-cluster and WAN connectivity, a RAID File system, a set of 3D accelerator boards, and a video wall), which will be dedicated to support research in computer and information science and engineering. The equipment will be used for several research projects, including in particular:

Scalable Communication and Synchronization Support on SMP Clusters for Metacomputing.

A High Performance Image-Based Warehouse Across Heterogeneous Environment

Parallel Visualization and Display of Tera-scale Data

Multimedia Processing and Networking on SMP Clusters